Purchase of Equipment for Dielectric Measurements

9319308 Mijovic This grant provides partial funding for the purchase of equipment for dielectric measurements. Three departments will be represented in research which requires the use of this equipment: Chemical Engineering, Chemistry, and Electrical Engineering. No similar equipment is available at Polytechnic University, which will be used in a variety of research activities. ***